Authentic Research in STEM Educator Preparation for Issues of Culture, Justice, and Equity

The Illinois Wesleyan University Noyce Track 1 project aims to serve the national need of developing highly effective mathematics and science teacher-leaders by supporting at least 11 Scholars by offering early and advanced field placement in STEM classrooms, undergraduate research opportunities, scholarships, and postgraduate mentoring for early career teachers. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in active learning instruction.

This project at Illinois Wesleyan University includes partnerships with two local school districts including District 87 and Unit 5 in Bloomington-Normal, Illinois. Project goals include: Goal 1: Recruit and retain at least 11 high achieving undergraduate students to become STEM educators over a 6 year period; Goal 2: Educate IWU Noyce Scholars using high-impact practices like rigorous STEM coursework, undergraduate research experiences, early and field placements in STEM classrooms, and hands-on learning; Goal 3: Support IWU Noyce Scholars in securing employment in high needs districts and excelling as in-service STEM teachers. This project is iteratively evaluated, guided by the following evaluation questions: (a) To what extent has the program successfully recruited and retained at least 11 high-achieving undergraduate students into the STEM teaching pathway over a six-year period? and (b) How effectively have IWU Noyce Scholars been prepared and supported—through high-impact educational practices and field experiences—to obtain positions in high-needs districts and provide high quality STEM instruction in those positions? The results of this project will be disseminated nationally to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.